West Virginia EPSCoR: Advanced Development Proposal

The Experimental Program to Stimulate Competitive Research (EPSCoR) in the State of West Virginia will enhance the research competitiveness of investigators working in three research clusters: (1) Cell Regulatory Biology; (2) Nonlinear Dynamics; and (3) Computational Materials. Three universities will participate: Marshall University; West Virginia University and West Virginia Institute of Technology. The West Virginia plan offers knowledge transfer activities which will increase the number of graduate students for the biomedical Ph.D. program, establish a graduate research seminar for students to present their research results in non-linear dynamics, and establish workshops with industry representatives in computational materials research. West Virginia will continue to fund an equipment grant program to inspire undergraduate students to continue science and engineering careers. Active participants in EPSCoR governance will include key university administrators, State government officers, and influential members of the private sector. Over the three-year award period the State of West Virginia will contribute $3.6 million to ensure the success of the EPSCoR effort.